Dissertation Research: Relating Biogeochemical Model Parameters to Climatic Gradients

Biogeochemical models are critical for our understanding of global net primary
production (NPP), a key piece of the carbon cycle. Because such models require more
input parameters than can be readily measured over large areas, a subset of those
parameters are assigned according land surface vegetative type (landcover type). Because
this simplification masks variability within landcover types, it leads to potential error in
NPP output. The existing PhD project utilizes a probabilistic approach to examine the
potential error, focusing on the BiomeBGC process model. The three parameters of
interest are foliar carbon:nitrogen ratio, specific leaf area, and leaf retention time. The
proposed study will use field sampling across a climatic gradient to examine possible
links between these parameters and climate within the conifer landcover class in Oregon.
Lack of correlation would support current modeling strategies, while existence of
correlation would be used to construct improved maps of input parameters. NPP modeled
using these maps will be compared against output derived using single values within the
conifer class. These numerical experiments, in combination with a variety of on-going
field NPP measurements, will significantly improve our ability to simulate NPP over a
broad area of coniferous forest in the Pacific Northwest.